Extremal Eigenvalue Problems and Minimal Surfaces

This project’s goal is to study global existence and uniqueness properties for critical points of functionals which concern the structure of membranes and interfaces. Such surfaces are encountered in mathematics, physics, and applied sciences, as models of soap films, phospholipid vesicles, and event horizons of black holes. Recent discoveries have revealed deep links between objects called minimal surfaces—critical points for the area functional—and extremals for shape-optimization functionals arising from spectral geometry. Developing new techniques to study global properties of critical points of such functionals is a major goal of this proposal, and the investigator will leverage these discoveries to forge new links between minimal surfaces and spectral geometry.

Using shape-optimization methods for eigenvalues, the investigator and collaborators will study non-orientable minimal surfaces embedded in the four-dimensional sphere; this investigation will construct examples with each topological type and examine aspects of the space of such surfaces. The investigator will continue work on PDE gluing methods for constructions of minimal surfaces. Finally, with graduate and undergraduate students, the investigator will study homogeneous solutions to the one-phase Bernoulli problem, with an aim to prove bounds for the instability index of such solutions based on geometric and or topological properties.